NSF-CGP Fellowship: Relationship between Structural Disorder Parameters and Conductivity in Semiconductor Fullerene Films

9600229 Han This proposal supports the collaboration of Dr. Daxing Han of Department of Physics and Astronomy at the University of North Carolina at Chapel Hill and Dr. Shoji Nitta at Faculty of Engineering of Gifu University. Project funding will enable Dr. Han to spend three months in Japan, resident at Gifu University, in order to study the structure disorder parameter in semiconductor fullerene films. Dr. Han has previously studied the structure disorder in non-crystalline semiconductors. Dr. Nitta has been investigating the optical absorption of semiconductor fullerene film. Dr. Han will combine her expertise with that of Dr. Nitta to study the correlation between structure disorder and conducting properties in semiconducting fullerence. This proposal brings together research scientists from two countries working in the area of fullerence. Fullerence and related materials have attracted great interest in recent years because of their unusual properties and potential applications. The U.S. scientist will have the opportunity to become familiar with fullerene film preparation, research techniques, and facilities at Gifu University while contributing to the overall research effort. Therefore, this proposal fulfills the objectives of the Program in its exchange and transfer of scientific knowledge through an international collaboration. ***